Collaborative research: Large-scale, long-term, multi-directional, cross-hole experiments in the upper oceanic crust using a borehole observatory network

Intellectual Merit
This proposal is to conduct hydrogeologic experiments in shallow ocean crust on the east flank of the Juan de Fuca Ridge using borehole instruments installed in IODP drill holes on Expedition 327, July-September, 2010. The proposed work will be the first to run a long-term cross-well hydrogeologic test in ocean crust. The data will be used to examine fluid and microbial characteristics within the shallow ocean crust and their relationships. Three-dimensional numerical modeling will evaluate coupled fluid-thermal-chemical flow within the crust.

Broader Impacts
This project will train graduate and undergraduate students and also includes a major outreach effort that leverages off of an existing education and outreach program already in place for an IODP expedition in 2010.